An Arctic Temperature Database and Trend Assessment

This research will evaluate recent variations of surface air temperature over the Arctic and subarctic through consolidation and comparison of existing data on Arctic surface air temperature from high-latitude land stations, Arctic Ocean ice stations and from sub-arctic sea surface temperatures. These data will be examined for evidence of changes consistent with model projections of greenhouse warming, which has been shown to be amplified in polar regions during the non-summer months. The dataset will span the past several decades, 1950 to present, and will cover the region pole-ward of 45 degrees north latitude. The study will also assess the magnitude of the urbanization effect at northern land stations. This research is collaborative with DPP 9214857.